Some Problems on the Edge of Descriptive Set Theory

The specifics of this project concern three directions which
arose out of a general interest in definable equivalence
relations. The first of these directions relates to the treeable
equivalence relations. Following work of Adams and Kechris, we
know that there is a mass of countable Borel equivalence
relations which are mutually incomparable. No such result is
known for the treeable Borel equivalence relations. We do not
know whether there are infinitely many distinct examples, and we
basically have only one established example which is not
hyperfinite. More generally we do not know whether the implicit
involvement of measure theoretic examples involving free actions
of the free group is the sole obstruction to hyperfiniteness. The
second direction of Hjorth's project concerns issues in the fine
study of Borel complexities of countable isomorphism types in the
topology of quantifier free logic, and may be connected with a
translation of some basic concepts from first order logic into a
quantifier free context. The third direction of the proposal is
to investigate some combinatorial questions, such as having a
model with a certain partition property for definable partitions,
for infinitary sentences, especially those arising as the Scott
sentence of some countable structure; this may be related to a
still open problem posed by Shelah in the 1970's on the Hanf
number up to the continuum for countably infinitary logic.

In very general terms, this project can be located inside the
branch of mathematics known as "descriptive set theory". This
area arose around the end of 19th century as part of an effort to
better understand the basic objects -- such as the real number
line, real valued functions, subsets of the reals, subsets or
regions of two dimensional and three dimensional space, the area
or volume of such subsets -- which appear in calculus, and which
are needed for applications in engineering, physics, and
differential equations. Descriptive set theory does not itself
actually address any of these eventual applications, but is
rather preoccupied with purely foundational issues. Following
Silver's theorem in the 1970's, many descriptive set theorists
have become interested in equivalence relations on spaces such as
the real number line, or two dimensional space, or similar
classes of "topological spaces". The study of such equivalence
relations leads to quotient objects which arise by considering
the collection of all equivalence classes. For instance if we
set two real numbers to be equivalent when the result of
subtracting one from the other is an integer (i.e. a "whole
number"), then the collection of equivalence classes may be
naturally identified with the result of basically wrapping the
real number line around itself, to obtain circle of circumference
one. In this simple example the quotient object is easily
understood, and has a geometrical representation. Most of the
work in Hjorth's area deals with the so called "non-smooth"
equivalence relations whose quotient objects do not admit such a
representation, and the study of these quotient spaces is known
to have connections with a variety of mathematical disciplines,
such as "dynamics", and "ergodic theory", and some of the more
abstract branches of "analysis", such as "infinite dimensional
group representations".